Instrumentation and Infrastructure: Design and Research Astronomy

This is a Professional Development Proposal that would allow the investigator to acquire training and research experience in the field of Science and Technology Studies. The specific research project is a case study of the demand, design, manufacture and use of very large mirror blanks in contemporary telescope construction. The study will contribute to understanding of how instruments are shaped by technical and scientific considerations and, in turn, shape the science that is later done with them. The study is strongly empirical, grounded in detailed observation of scientific and technical work, accompanied by reading of the literature, interviews, and examination of the mirrors themselves. The research site is the Steward Observatory Mirror Laboratory at the University of Arizona.